U.S.-Japan Cooperative Research: Studies in General Relativity and Computational Astrophysics

This award will enable Prof. Stuart L. Shapiro and colleagues of Cornell University to collaborate with Prof. Humitaka Sato of Kyoto University, Japan, and co-workers over a period of two years. They will investigate certain leading-edge problems in relativity and relativistic astrophysics, including the nature of gravitational collapse, the formation of black holes, and the generation of gravity waves. The emphasis of this work will be on the application of supercomputers to these problems. The purpose of this research is to enhance our understanding of both relativity and cosmology, by bringing together two of the leading groups in the field. Both groups have done pioneering research in these fields and share an interest in the application of supercomputers to these problems. The program of regular visits and collaborative investigations to be supported by this grant will combine the expertise of the groups. Appropriate supercomputer facilities are available both in Kyoto and at the Cornell National Supercomputer Facility, and will be applied to such problems as the nature of mass singularities leading to black holes; the nature of nonspherical gravitational collapse; and cosmology of the early universe. Each group has developed its own algorithms for computational simulation of relevant phenomena, and programming techniques and results will be compared.